Mathematical Sciences: Model Building for Linear and Non- linear Mixed Effects Models

Mixed effects models are used with data where several observations are made on each of several different subjects and the observations are assumed to be generated by a model function. Some of the parameters in the model function are assumed to be common to all subjects (fixed effects) and some vary between subjects (random effects). The purpose of the analysis is to estimate the fixed effects and characterize the distribution of the random effects. Linear mixed effects models, in which all the parameters occur linearly in the model function, provide an explicit objective function to define maximum likelihood or restricted maximum likelihood estimates. We will investigate properties of these estimates including the asymptotic uncorrelation of the fixed effects and the variance-covariance of the random effects. This work includes determining effective parameterizations of the variance-covariance of the random effects. Using this we can assess the effectiveness of the two-stage algorithm for nonlinear mixed effects models proposed by Lindstrom and Bates. The type of mathematical modelling which statisticians call "mixed effects" has been widely applied in pharmacokinetics, the study of the rate at which the body absorbs and eliminates drugs. This statistical tool allows, a pharmacologist to build a mathematical model of the pharmacokinetics of a drug in the "average" person, then update that model with a few concentration measurements on a particular person. In this way, we augment limited information on the individual with general information about the population to establish more accurate dosage schedules. This saves both time and money. We will be developing statistical techniques to make the development of mixed effects models easier and more accurate.